Probing the Infra-Structure of Two Deoxynucleotide Metabolizing Enzymes

A detailed study of the enzymes, deoxycytidylate (dCMP) (dCD) and thymidylate (dTMP) synthase (TS), will be conducted in order to further understand how the structures of these two enzymes determine their catalytic specificities. Both enzymes are important in providing pyrimidine nucleotide precursors of DNA and are notably elevated in mitotically active tissues and cells. The availability of large quantities of T4 dCMP deaminase will make possible detailed studies on locating the substrate binding sites as well as the allosteric sites for dCTP and dTTP. Site- specific and random mutagenesis studies are planned to modify amino acids at the above binding sites to determine their influence on enzyme activity. dCMP deaminase is present in very low amounts in eucaryotic cells, but has been isolated and purified to homogeneity by using a modified substrate affinity column. Our ultimate goal is to use recombinant DNA methods to synthesize large amounts of the human dCMP deaminase in bacteria or yeast for further mechanistic and binding sites studies similar to those described in this proposal for T4 dCMP deaminase. Attempts will be made to crystallize T4-dCMP deaminase, as has been described by us for T2-dCMP deaminase, for x-ray structural studies in collaboration with colleagues at the Medical Foundation of Buffalo, Inc. Studies of T4-thymidylate synthase will center around the additional proteins expressed by the complete gene, which is composed of two exons separated by an intron. The significance of the Td gene encoded IRF protein, which possesses a specific endonuclease activity, will be studied with respect to its properties, its solubilization, processing and potential transposase activity. In addition the high level expression of the exon I and exon II genes of Td will be attempted. Continued emphasis will be placed on x-ray crystallographic comparisons of TS from different sources, of particular interest will be the structure of the phi3T phage TS.